NSF Young Investigator

9358409 Bonnecaze Fundamental mechanisms and phenomea of transport and mixing of dense particulate flow will investigated using tomographic imaging, advanced micromechanical models and numerical simulations. His research on two-phase flow materials with random microstructure has applciations to electrorheological fluids, multiphase processes and materials production. ***